New Metabolic Maps Technique

9304786 Goelman The proposed work aims to improve the Hadamard spectroscopic imaging technique to permit spatial imaging of metabolic intermediates and pH in intact cells and tissues. The specific aims are to: (1) develop a technique to minimize rf peak amplitude in the multiple inversion band pulses, (2) correct for chemical shift localization errors, (3) extend the formalism used to describe and develop the multiple inversion pulses, and (4) to write software to run the Hadamard experiment. %%% The proposed research is aimed at improving magnetic resonance spectroscopic imaging. Current progress in imaging has been based on water imaging. The proposed research involves other nuclei, principally phosphorous, of importance to cellular metabolism. Obtaining spatial information about metabolites will broaden the applicability and specificity of magnetic resonance imaging. The main problems with imaging molecules other than water have been technical. The proposed work will contribute significantly towards the goal of solving theses technical difficulties. ***